CAREER: Understanding Structure-Function Relationships in Polymeric Semiconductor Materials from Top-Down and Bottom-Up Perspectives

In this CAREER project funded by the Macromolecular, Supramolecular and Nanochemistry Program of the Chemistry Division and the Electronic and Photonic Materials Program of the Division of Materials Research, John Grey of the University of New Mexico will study the fundamental chemistry and materials science of conducting polymers used in photovoltaic devices. A range of microscopy and spectroscopic characterization methods will be used to study conducting polymers in different environments ranging from single polymer chains up to thin films. The aim is to understand how polymer conformations influence aggregation properties in bulk materials that affects the device performance. The educational plan focuses on improving programming skills at the undergraduate chemistry course level, developing a graduate level nanoscience course, and participating in outreach programs to local Native American groups. This work will enhance our fundamental understanding of organic photovoltaic materials and lead to more rational ways to process these materials during device fabrication. Ultimately, this work could lead to less expensive and more efficient solar energy collection devices.